Technician Support: Geochemistry Laboratories at the University of Pittsburgh, Phase I

0214212
Capo

This award provides three years of Phase I research laboratory technician support in the Department of Geology and Planetary Science Geochemistry Facility at the University of Pittsburgh. The University is providing 50% of the salary and fringe benefits for this position. The facilities comprise sample preparation, clean chemistry, and instrumentation laboratories. Major instruments include an inductively coupled plasma-atomic emission spectrometer (ICP-AES) and an NSF-funded multicollector thermal ionization mass spectrometer (TIMS). The research technician is responsible for day-to-day operation of the labs, maintenance of equipment, training of collaborators and students, and assistance with method development. In addition to facilitating hands-on class and outreach activities, this position will provide vital support for research projects focused on Quaternary soil development and paleoclimatology, modeling of weathering in watersheds, development of acid mine drainage, Precambrian paleoenvironments, and igneous geochemistry.
***